FT-NMR Instrumentation for Undergraduate Chemistry

The acquisition of a 200 MHz Fourier transform Nuclear Magnetic Resonance spectrometer with multinuclear and variable temperature capabilities will improve the quality of the chemistry program. The instrument will be used by all of the chemistry majors, many allied science majors including physics and biology majors, area secondary school chemistry teachers, and selected minority high school students. Hands-on undergraduate student use of FT-NMR will occur in the organic chemistry, organic instrumental analysis, chemical synthesis, physical chemistry, analytical chemistry, and biochemistry courses, as well as in student research projects. A positive long range effect will result from the exposure of secondary school chemistry teachers and high school minority students to this important new technology. The grantee will match the NSF award from non-Federal sources.